RIA: Constitutive and Finite Element Analysis of Shape Memory Alloys

9308937 Brinson The research addresses a critical concern for the advancement and use of shape memory alloys (SMAs) in smart structure technology. In this investigation a generalized and unified constitutive law is developed that describes the thermomechanical behavior of shape memory materials in terms of their martensitic phase transformations. The derived relations will be incorporated into a nonlinear finite element procedure and used to replicate experiments. This research will utilize mathematical and numerical methods and limited experimental testing, combined with detailed understanding of the micromechanical material behavior, to develop constitutive relations that extend, correct and advance work previously done in this area. ***